NSF/AFOSR Joint Project for an Interactive, Distributed, Computational Environment for Design of Multifunctional Materials and Processes

This award provides supplemental support to an AFOSR research project to support the research into an interactive, collaborative design and manufacture computational framework for multifunctional materials design and product realization. With this supplemental funding, graduate student support will be provided to investigate the fundamental question regarding how information about materials, that includes simulation, properties, and uncertainty aspects, can be represented in a computer interpretable manner to support design in the context of the large collaborative DFM Framework.

It is expected that the software tools that result from this project will be set up as a web-based education and dissemination module. This development of a materials framework for designing novel products that are customized, robust, multifunctional, and manufacturable, should contribute to improve cycle times for the development and insertion of a broad range of new materials and products. This will have broad impact on a range of innovative products that include many classes of materials such as cellular foams and nickel-based superalloys.